Interlaboratory Testing Program for Laboratory Properties ofRock Subtitle - Cost of Buying, Transporting, Logging, Coring, and Distributing Rock Samples

The objective of this project is to obtain reliable estimates of precision (reproducibility and repeatibilty) of selected laboratory properties of rock, working primarily with published standards of American Society for Rock Mechanics. Based on the results of this investigation, modifications will be proposed to fine tune existing standard test methods. The analyses and the interpretation of the data with regard to both test methods and test materials will be disseminated via publications, technical meetings and training sessions.